Molecular Mechanisms in Post-Germinational Regulation of Genes in Arabidopsis

The objective of this research is the identification and molecular characterization of developmentally active plant genes. This will be done by isolating insertional mutants. So far in Dr. Redei's laboratory and in that of his collaborators, about 1,500 Arabidopsis plants have been regenerated after transformation by a variety of T-DNA vectors, including different fusion vectors. The insertion of T-DNA by Agrobacterium in about 1% of the cases inactivated various genes as revealed by the appearance of recessive mutations absolutely linked to inserts. These inserts serve also as a molecular tag on the plant genes and promoters, permitting their isolation and molecular and functional characterization. A number of developmentally regulated promoters have been identified and the reisolated and sequenced gene fusions indicate that the T-DNA insertion does not necessarily involve structural rearrangements, losses or additions. Therefore the experiments outlined appear useful for the study of developmentally regulated genes in depth and under native conditions. Because of the high efficiency of the transformation system, Dr. Redei expects to cover with gene fusions and insertions a substantial part of the entire genome and obtain developmental information on a representative collection of Arabidopsis genes. This project is a collaborative effort between the University of Missouri, Columbia and the Max-Planck Institut, Cologne. %%% Arabidopsis has become one of the key model systems for the study of plant development. This is due in part to its short life cycle and to its small genome size. Dr. Redei's work will generate a series of mutants which could prove to be a extremely valuable resource for the research community.